Conference on Biochemical Engineering (BE7), March l991

The objectives of this conference are to bring together biochemical engineers and biological scientists from universities, government, and industry from all over the world to share and assess the most recent advances and future needs in research related to biochemical engineering and biotechnology. The meeting structure and interdisciplinary nature of the conference allows significant interactions among the participating engineers and scientists. The theme of this conference is: Biochemical Engineering Fundamentals: Cellular and Reactor Engineering.